Industry/University Cooperative Research Activity: Structure and Dynamics of Molecular Activation on Surfaces (Materials Research)

The immediate goal of this project is to work toward a detailed understanding of one aspect of a heterogeneous chemical reaction, namely, the mechanisms of absorption and dissociation of small molecules on clean and modified surfaces. The long-range goal is to permit the design of a catalytic material that will improve a given chemical reaction or process. The surfaces of present interest include single crystal iron and the oxides, nitrides, and sulfides of certain transition elements including titanium (Ti), molybdenum (Mo), iron (Fe), and platinum (Pt). As appropriate for these systems, the relevant techniques will be used to determine structure, orientation, and electronic properties of adsorbed reaction intermediates; reaction dynamics; and energy transfer processes. Emphasis will be on examining the relationship between the detailed geometric and electronic structures of the surfaces of these materials and their very interesting surface chemistries.